RESEARCH INITIATION AWARD: Distributed Implementation of Optimal Power Flow

The proposed research is for developing new algorithms for distributed implementation of "optimal power flow" (OPF) in a large power system. In view of the size of the system a decomposition of the system is proposed. "Shadow costs" on , among other things, interchanges of active and reactive power between regions would guide the distributed calculations in such a way that the economic interpretations can be placed in the regional interchanges. The regions would be relatively large to accommodate a coarse-grained processor architecture. BY dividing the processing into regions, data communication can be largely localized to the regions. The interregional communications requirements can be considerably less than for a centralized implementation of OPF. However, the main advantage of distributed processing is the potential decrease in solution time due to increased (distributed) computing power.